Design and Analysis of Cryptographic Protocols for Secure Communication

Innovations in computer and communications technologies are making it easier
and faster to do things but also bring with them new security risks. This
proposal is concerned with cryptography, which is an important component in the
provision of security in the electronic world. A cryptographer designs
schemes, or protocols, for tasks such as data authentication, data encryption,
identification, and key distribution which are implemented and incorporated
into the computer systems and are responsible for imbuing data and transactions
with attributes like privacy and integrity. Providing high-quality,
cost-effective cryptography is a challenge because cryptographic protocols are
easy to specify but hard to analyze, and notorious for containing bugs that
take a long time to be discovered. The goal of this project is to identify and
tackle practical problems in cryptographic protocol design and analysis based
on theoretical techniques, delivering real-world usable protocols backed by
theoretically sound security analyses, and thereby impact implementation, usage
and standardization of cryptography in the computer and communications
industry.

The specific research proposed here is on three broad topics: anonymity,
authenticated encryption and asymmetric identification protocols. The term
``anonymity'' is broadly used to refer to issues regarding keeping private the
identities of parties engaging in electronic transactions. The researchers
will investigate anonymity for mix-nets, anonymous encryption, and blind
signatures. In each case they will look at both foundational issues such as
definitions, and then the possibility of practical, proven secure
constructions. In the authenticated encryption domain they will investigate the
security of the popular encrypt-with-redundancy paradigm. Finally they will
consider the design of identification protocols secure against attackers having
the powerful capability of resetting the internal state of the client machine
and also seek improved transformations of identification protocols to digital
signature schemes.